Workshop & Conference on Linguistic, Computational, and Philosophical Aspects of Generic, Habitual and Mass Terms to be held Summer 1987 at Stanford University

Abstract Narrative A key component of linguistic theory is semantics, the study of what and how linguistic expressions mean. This is in some ways the most difficult part of linguistics, because meaning is the relationship between what is said and what is talked about, and what is talked about can in principle be anything in the universe, true or false, real or unreal. Most of whatever success there has been in work in linguistic semantics has come about primarily by virtue of setting strict limitations on the classes of meanings to be studied. Further progress depends, then, on progressive relaxation of these limitations, to incorporate broader ranges of linguistic expressions into a general semantic theory. The aim of the workshop proposed here is to accomplish such a broadening of the reach of semantics, to a class of phenomena which have been presenting increasing challenges to semantic analysis under currently available theoretical models. These phenomena are the generic, habitual, and mass terms. Generic expressions say something about classes of things, for example, "Dogs are furry." Habitual expressions describe some kind of activity which happens regularly, even though it may not be happening at the moment, for example, "Max reads Time magazine." Mass terms are those which refer to undifferenti- ated stuff which may be present in greater or lesser quantity, but can't be counted, like "water" or "salt". There is reason to believe that all of these types of expressions are related semantically, and that a proper modification to semantic theory dealing with one type could in principle deal with the other types as well. These expressions are of particular importance because they are the typical form of scientific statements, and our failure so far to be able to perform a satisfactory semantic analysis of them has made it impossible to deal with such statements in a computational environment. The participants in the workshop are linguists and logicians who have been trying to cope with the semantic problems related to this set of phenomena from their own respective perspectives for some time now. While they have made some notable progress, each has encountered significant problems, which they believe may be amenable to attack from the perspective of one of the others. The workshop will provide an extended period of intensive interaction to allow them to follow up these leads fully, and report their findings to the rest of the community interested in these problems.